CONACyT: High Performance Interoperable Digital Libraries in the Open Archives Initiative

The project submitted in response to NSF 96-145, will build on established activities exploring high performance mechanisms for interoperable distributed digital libraries. In particular, the project will draw on existing efforts related to the Open Archives Initiative (OAI) to demonstrate effective retrieval.across multiple repositories in the US and Mexico. The project will test new integration of diverse systems which exemplify agent, federated search, and multiple database/gateway approaches to distributed processing. The testbed aspect of the project aims to advance and facilitate sharing of research in a proven international,
multilingual collaborative environment. This project is highly pluralistic and will engage researchers and students from universities in the US and Mexico with high potential for extension to other sites located around the globe.